Net-Shape Die Casting of Complex Parts

Die casting is the most effective process to mass produce complex metal parts to tight tolerance at low cost. However, the traditional die-casting process can only produce near-net-shape, and always requires a secondary operation to trim off overflows and gates. Further, a more serious problem (particularly for complex parts) is the uncertainty of having porosity somewhere in the part caused by turbulent flow during the process, which is difficult to detect. This inherent disadvantage may have been a major factor in the slow growth of the seven-billion-dollar industry which is facing stiff competition from other processes like injection molding of plastics as well as foreign die-casting producers, due to lack of technical edge. It is necessary to develop a process that can produce net-shape parts akin to such processes as injection or transfer molding of polymers. The idea is to make use of the so-called "semi-solid alloy" (a slurry of solid particles suspended in a molten metal matrix) which has high viscosity and can be processed in the laminar-flow regime. The main objectives are to study the rheology of such materials, develop simulation models for flow and solidification, and design a new machine for experiments. Successful completion of this research would have a potential to revolutionize the die-casting technology and provide our industry an edge over foreign competition in this area.